Research on Service Systems with Bursty Arrivals

The proposed research deals with problems related to the approximation, adaptation and optimization of probability models involving the Markov-Modulated Poisson Process. These problems will be examined under several criteria, each of which calls for the identification and preservation of essential physical features of the point process. The results have applications in communications engineering. Marcel Neuts is world renowned in computational probability and is very capable of carrying out the research along with his young capable associate. The team should produce leading developments for modeling telecommunication systems. The University of Arizona is an excellent environment for research in stochastic modeling in engineering.